The Physics and Chemistry of Fatigue Damage - Engineering Possibilities in Cumulative Damage and Corrosion Fatigue

The objectives of this research are to study the physics of fatigue (by experimental analyses and development of predictive models based on the cumulative damage concept) and corrosion enhanced fatigue (based on interaction of a passive surface film with the localized deformation which occurs at and near surfaces during the fatigue process). The planned load-controlled cumulative damage studies will include single crystal and polycrystalline copper. The corrosion/fatigue studies will examine the electrochemical/mechanical behavior of passive surface films using 316L stainless steel as the model system. This research will involve extensive scanning and transmission electron microscopy and mechanical testing (under a series of polarization potentials) studies.